EAGER: Environmental Urban Runoff Monitoring

The objective of the proposed research is to use a lab-scale, integrated sensor-computer technological platform for monitoring urban waste water. The proposed effort is expected to produce a transformative solution to real-time and online monitoring of urban waste water runoff for planning and decision making in civil infrastructures, natural environment protection, and water pollution related emergency.

This project proposes to explore a new sensor-computer framework for monitoring and controlling urban water pollution. The interdisciplinary team of civil engineering, electrical engineering, and computer science/informatics will address the complex relevant issues in sensor instrumentation, hydraulics, computation modeling, data processing, and communications. This team effort will advance the multidisciplinary knowledge and turn the relevant technical issues involved into an implement able technology for broad applications including specific impact to DC waterways pollution monitoring and control. Further, as the research is interdisciplinary, students will get a comprehensive engineering education across the conventional disciplinary boundaries. The project will provide hands-on activities designed for underrepresented students and minority students. The project team is at a Historically Black College/University (HBCU) with equal distribution of female and male groups.